Organization of the 1993 Quantum Optoelectronics Topical Meeting, March 17-19, 1993, Palm Springs, CA.

This proposal requests partial support for travel funds for graduate students, post docs, and invited speakers to attend the first topical meeting on Quantum Optoelectronics, to be held in Palm Springs, CA March 17-19, 1993, under sponsorship of the Optical Society of America. The meeting will provide a unique forum for presentation and disscussion of current research in device physics and applications of lower dimensional semiconductor and related materials structures. This includes optical and optoelectronic phenomena derived from quantum confinement, fabrication of novel light emitters, modulators, and detector structures based on such effects and techniques as synthesis and nanofabrication of small device configurations. Semiconductor-based quantum well, superlattice, and heterostructures have made significant inroads into novel device physics and device engineering. Quantum wire and dot structures as well as more complex low dimensional architectures in materials of exceptional quality now make possible the next generation of optoelectronic devices. One aim of the requested support is to sponsor young researchers who form a large portion of the active community in the field. The students will be asked to provide feedback as to their experience in the form of a two-page letter report that will be forwarded to NSF.